The Origin of Structure in the Universe

This research, carried out by one of the world's leading young theoretical astrophysicists, is aimed at furthering our understanding of the large scale structure in the universe and its origins. While the work is primarily theoretical, it also will include an observational test of a proposed high z supercluster. Other investigations will examine the statistical properties of the distribution of distant matter, and the evolution of the Lyman alpha forest of absorption lines, and the evolution of hydrodynamic instabilities relevant to galaxy and star formation.